MRI/RUI: Acquisition of Instrumentation for DNA/RNA Preparation and Analysis for Research at the Cellular and Molecular Level

A grant has been awarded to Knox College under the direction of Dr.
Janet Kirkley to acquire a real-time thermal cycler and fluorometer. This
equipment will enable Knox College faculty and students to perform quantitative
polymerase chain reaction (QPCR). This technique has a wide variety of
applications, and access to QPCR will enhance undergraduate research,
education, and training. Because of the ease and speed of QPCR, students will
be able to answer more sophisticated questions directed at understanding how
cells function at the molecular level. This equipment will replace older, more
time-intensive methods as well as provide new research capabilities.

This equipment will be used by undergraduate student researchers and
their faculty mentors to: 1) study how temperature regulates the activation of
macrophage cells, which promote inflammation; 2) investigate the role of the
protein intersectin in the development of the frog Xenopus laevis; and, 3)
address structure-function relationships in the bacterial GrpE protein.
Students will use this equipment in the context of ongoing research projects.
Other techniques can be developed using the real-time capability of the thermal
cycler, and Knox faculty and students will be encouraged to incorporate use of
this versatile equipment in their research programs.

This equipment will substantially enhance undergraduate research and
education at Knox College. It will allow students to explore complex molecular
events in cells, leading to a greater understanding of the molecular processes
necessary to sustain life. Preparation for careers in science will also be
enhanced by students acquiring skills in QPCR, a valuable, cutting edge, widely
applicable technique.